High Energy Physics Research

This action will provide funds for continued support for research in elementary particle physics. Three faculty, two research associates and three graduate students will continue their investigations of particle interactions at Fermilab. There they will collaborate in the operation of a particle detector just coming into operation (the D0 detector). They will study phenomena associated with proton-antiproton collisions at the highest laboratory energies currently available. Among their collaborators is a large number of other investigators supported with National Science Foundation funds. The research will contribute to our understanding of the "standard model" of elementary particles, its and perhaps its limitations and domain of completeness.